International Travel for the XII International Congress of Anthropological and Ethnological Sciences in Zagreb, Yugoslavia, 24-31 July 1988

This international travel award will provide airfare support for a limited number of US participants in the XII International Congress of Anthropological and Ethnological Sciences in Zagreb, Yugoslavia, 24-31 July 1988.